Conference For Transportation Algorithms and Models; June 17-23, 1998, San Juan, Puerto Rico

9714428 Jaillet This award is to support the Triennial Symposium on Transportation Analysis (TRISTAN). The Symposium brings together leading researchers from around the world working on mathematical and algorithmic aspects of transportation systems analysis, with an emphasis on logistics, vehicle routing, common carrier operations, and traffic operations. The Symposium serves as an important forum for the presentation and exchange of research ideas in transportation science, and is expected to spur the formulation of major research directions in the field.